Physics Research Experiences for Undergraduates Program

9200055 Ritchie This is a Research Experiences for Undergraduates Site Award at Arizona State University. The funds provide support for ten undergraduate students selected from candidates from institutions in the Southwestern United States. Special emphasis is placed upon recruitment from under-represented groups such as females and minorities, especially Hispanic students. Scholastic achievement is the primary requirement for participation in the program, and recommendation by a faculty member is a significant factor. Participation consists of summer sessions at Arizona State University. The research under supervision of faculty members will involve topics in the areas of synchrotron radiation, electron holography, thin film growth, scanning tunnelling microscopy, nuclear magnetic resonance, Monte Carlo and molecular dynamics simulations, high resolution image simulations, time-resolved scattering, and low energy pion physics. ***